HF Heater Effect on Natural Spread F Phenomenon at Arecibo, Puerto Rico

The investigator, with several students, uses the Arecibo Versatile Toroidal Facility (VTF) in laboratory simulation experiments to study the role of lower hybrid waves in ionospheric plasma modifications. In recent experiments, the spectrum of Langmuir waves combines the PDI decay spectrum and a different decay spectrum. This new decay spectrum may stem from parametric decay of O-mode wave; compared with the PDI process, it requires a higher threshold, exceeded by the newly upgraded Arecibo heater. Using the 'tilted' HF heater, the PI aims to understand the physical mechanisms of HF heater-enhanced Langmuir wave turbulence.